Powerful Families Project: "What Parents Who Are Not Science Literate Can Do To Nuture Science Literacy

9705735 Burrows This project plans to develop a partnership with KCTS Public Television, Laubach Literacy Action, and the National Alliance of Urban Literacy Coalitions to develop an implementation plan to promote higher science literacy in at-risk families in inner city settings. These organizations reach families that seldom participate in formal and informal science learning programs. A training design for literacy providers to use science literacy materials as an integrated part of their adult literacy curriculum will be developed. Video and print materials that are specifically designed for low literacy adults will be developed. These are expected to be simple, fun, and effective ways to foster the love of science and learning in themselves and their children. Front-end evaluation focus groups will be conducted with providers and parents to gain insights into the specific needs and general expectations of the parents and literacy providers, and to get feedback on the proposed project materials.